Optimal Signal Recovery From Multiresolution Decompositions

This research work deals with the development of optimal linear reconstruction schemes and algorithms for bandlimited signals from subband and other multiresolution decompositions. The main results expected are development and assessment of very flexible reconstruction algorithms which will satisfy multiple desirable criteria in the reconstruction process, such as: robustness to additive noise and coding errors, as well as efficiency and flexibility in implementation. Signal decomposition choices which perform better will be identified and evaluated. These signal recovery techniques will be improvements and generalizations of existing rigid schemes based on Quadature Mirror Filter (QMF) banks, and Perfect Reconstruction (PR) filter banks. These techniques do not directly take into account the effects of noise or implementation issues. Incorporation of new developments in multiresolution representations, including wavelet transforms, will be part of this research. The potential applications of these techniques are in systems for efficient and flexible storage or transmissions of signals such as: speech, audio, images and image sequences (video). This last case is of major importance today in research for the following systems: high definition television, digital television, visual communication through ISDN, and space/earth transmission of visual scientific information.